A New General Decoding Technique and Its Applications

This research involves the further development of a technique originally developed for the purpose of locating disagreements between remotely located large files using a minimum of communication. The technique has been found to be quite effective for outer code decoding of concatenated codes for error control over a noisy channel. The code rules are rather arbitrary, and yet correction of almost cases of d-2 or fewer outer code symbol errors is possible with a decoding complexity which increases no faster that as the cube of the block length. Two areas are emphasized in this project. one area relates to the implications and relative advantages of using the new technique in various error control coding applications. The other area relates to the investigation of applications to various problems of communication, maintenance, and verification of the identity of replicated remote files in an efficient manner.